Atomic Processes Involving Negative Ions

The objective of the research is the theoretical treatment of the formation and destruction of negative ions due to electromagnetic fields, the collisions of Rydberg atoms with ground state alkali-metal atoms and inelastic collisions of low energy electrons with molecules. Both stable and unstable negative ions will be investigated using integral equation techniques, semi-classical approaches and the Faddeev formulation. For the ab-initio electron-molecule calculations, the R-matrix method developed by Schneider and Burke, is invoked.